The Role of Memory Retrieval in Probability Judgment

9911301

Yates, J. Frank

The Role of Memory Retrieval in Probability Judgment

People are often overconfident about their answers to general knowledge
questions (e.g. whether chimpanzees have longer or shorter gestation
periods than humans). And there is ample evidence that "real world"
judgments, such as physicians' diagnoses of myocardial infarction, are
often less than ideal in a similar way. The proposed research is intended
to further develop and test a recently proposed model which asserts that
features of how people bring to mind ("recruit") arguments pertinent to a
given judgment situation lead to deficient judgment. This research is
further anticipated to illuminate procedures that yield improved
judgments. The "argument recruitment model" proposes that people rarely
base their judgments on more than a few facts or arguments. And when they
do bring to mind multiple arguments from memory, the ones retrieved later
in the process tend only to support those presented earlier. The model
predicts that judgment should be improved if the amounts and "balance" of
retrieval of facts from memory are changed. Thus, the primary
manipulation to be explored in this research is that of requesting study
participants to recall all of the relevant facts (e.g., similar previous
cases) they can prior to rendering their judgments. Support for the model
will be indicated to the extent that such demands tend to reduce the
overconfidence evident in participants' judgments.